U.S.-Australia Cooperative Research: Novel Video Methods inMicrovascular Research

This award will support collaborative research between Dr. Annmarie Surprenant of the Oregon Health Sciences University and Dr. Timothy O. Neild of Monash University, Australia. In the vascular systems of the body (blood and lymphatic) it is the smallest muscular vessels that play the greatest role in physiological regulation. It has been extremely difficult in the past to make quantitative studies of the behavior of these vessels because they are too small to allow the attachment of mechanical devices to measure their contractions. It is possible to measure their movement by computer imaging but this approach had not been exploited because of the high cost of the equipment and the lack of suitable software. Computer image processing equipment is no longer prohibitively expensive and Dr. Surprenant's research team has developed a simple but novel algorithm for the measurement of small vessel diameter in real time. In an existing grant to Dr. Suprenant from the National Science Foundation, she is developing the software required for video-tracking of microvessels. In this project, U.S.-standard video, image processing and computer hardware will be brought to Dr. Neild's laboratory to determine the combination of hardware and software to use in designing new systems based on a video tracking software program to monitor the diameter of arterioles embedded in connective tissue, developed in Dr. Neild's laboratory. The overall objective of the project is to develop systems that will be compatible and available in both countries.